The Chemistry REU Leadership Group: Improving, Expanding and Diversifying the REU Experience

The Division of Chemistry supports this project led by the NSF Research Experiences for Undergraduates Leadership Group (REU-LG), a group of Chemistry REU site directors and others from the chemistry undergraduate research community. The group was created to support and enhance the REU chemistry program, which consists of over seventy individual REU sites. The Leadership Group (LG) has four general goals: increasing communication within the REU community and with the NSF, increasing the diversity of the students impacted by Chemistry REU programs, increasing the number of REU opportunities, and improving the evaluation and assessment of the Chemistry REU program. The LG also will catalyze new projects to advance its major goals. For example, the LG will help organize a meeting of Chemistry REU site directors and representatives from the NSF Louis Stokes Alliance for Minority Participation (LSAMP) program. This meeting, along with other LSAMP/REU workshops for faculty participants, will enhance partnerships between the two programs, facilitate the inclusion of LSAMP students in REU summer programs, increase communication within the REU community, and generally encourage the broadened participation of underrepresented groups in chemical research at the undergraduate level.